Geometric Packing, Covering and Path Planning

The problems of packing a set of objects into a finite container and of covering some space by a set of objects are known to be hard (NP- complete) computational problems. Geometric versions of these problems have many applications in areas such a stock cutting in computer-aided manufacturing and object recognition by templates in computer vision. The research is directed towards tractable, yet interesting formulations of these problems by considering the internal density of the packing or covering, that is by determining the best way of arranging objects in an infinite space, ignoring boundaries. In the area of path planning it will be investigated how the configuration of a set of obstacles in the plane affects the structure of shortest paths that avoid the obstacles. The research is particularly concerned with the conditions under which the shortest path between two points is monotonic, that is, it does not reverse direction relative to the line segment joining its start and goal points. Monotonic shortest paths are of interest, because (1) shortest paths can be found efficiently if they are known to be monotonic, and (2) many applications of path planning involve shortest path queries that are monotonic.